XPS:FULL: MSLO-JS: Towards Multi-SLO-Guaranteed per-Job Scheduling in Datacenters

Today's datacenters enable a wide range of applications with diverse service-level
objectives (SLOs), e.g., user-facing applications such as web searches and disaster
recoveries that require real-time or near-real-time responses, calling for stringent job
latency and throughput guarantees. However, due to the lack of a proper abstraction,
the existing SLO-aware job resource provisioning approaches are platform dependent
and trial-and-error by design. The proposed solution presents a new abstraction that
provides an effective separation of concerns and thus makes it possible to develop
platform-independent, portable algorithms that translate diverse job SLOs into exact
performance objectives (a.k.a. budgets) for constituent tasks, resulting in
SLO-guaranteed job resource provisioning. The approach proposed can be proven
by design and is expected to provide (a) important insights into computer systems
and architecture designs with high performance guarantees and cost-effectiveness;
and (b) significant improvements in performance guarantees and resource utilization,
and the reduction of operating cost for the increasingly popular cloud computing
environment. It is also expected to encourage academia-and-industry,interdisciplinary
and cross-layer collaborations.

The proposed research develops a sound theoretical foundation to enable
SLO-guaranteed job resource provisioning. It explores fundamental design principles
and is cross-layer by design, involving a two-layer design, from applications to runtime
system and system architecture. At the upper, application layer, with any given job
workflow represented in the form of Directed Acyclic Graphs (DAGs), the job SLOs are
translated into precise latency budgets for individual task nodes in the DAG, independent
of the underlying system to be used to run the job. At the lower, runtime system layer, the
subsystems for individual task nodes are selected and the resources are allocated to meet
all the task performance budgets and hence the job SLOs. This proposed research will
enable us to develop job resource provisioning algorithms with SLO guarantee, while
allowing for service consolidation and achieving high datacenter resource utilization.